Approximating Optimal Solutions Using Polynomial-Time Learning Machines and Applications in Intelligent Network Management

The approach of this Career Research Project is to apply weak classifiers in machine learning systems to produce better learning rules. Weak classifiers are those that do not allow correct concept identification all the time, but that work better than random guesses. Alone, they are not good enough for applications, but in combinations, they may be useful. There are two major considerations - efficiency of learning and generalization error. Within this approach, the goal of this research is to rigorously investigate the fundamental problems of learning systems in supervised learning performance and efficiency (2) to apply adaptive learning machines to intelligent network management.